Mathematical Sciences: Creeping Flows Through Hollow Boundaries and Stenotic Pipes

This research program will study the behavior of slow viscows flows through hollow boundaries and stenobic pipes. Although the equations in these problems are linear, significant difficulties occur due to edge singularities and mixed boundary conditions. In addition to analytical work, the research will also consider the numerical solution of these flow problems in infinite domains. Finite difference schemes have proved impractical for infinite domains because of the slow algebraic decay of the force singularity. This work should lead to a unified approach to a class of problems involving incomplete boundaries. The results will have practical implications in situations, such as polymer extrusion processes, which involve low Reynolds number flows past dicontinuous boundaries.